Computational Properties of Human Auditory Cortex

One's ability to extract relevant sounds from naturally overflowing acoustic stimulation requires efficient analysis of their identity and spatial origin. For example, concentrating on a particular spoken message in a noisy environment, filled with distracting sounds of other conversations, would be impossible without these essential brain functions. With National Science Foundation funding, Dr. John W. Belliveau is conducting research towards better understanding of how the human auditory system processes sound identity ("what") and location ("where") information. He is investigating how selective attention to sound identity or location modulates the putative "what" and "where" processing pathways in the human auditory system. To accomplish these goals, the researchers utilize spatiotemporal modeling of human brain activity, which combines spatially specific functional magnetic resonance imaging (fMRI) with temporally accurate magnetoencephaolographic/electroencephalographic (MEG/EEG) measures of brain function.

The broader impacts of this project include free distribution of developed software/algorithms, and advanced training of researchers in the field of cognitive neuroimaging. Empirical information on the auditory-cortex 'what' and 'where' pathways will be incorporated into computational models of human auditory processing. Advanced models of brain function may ultimately benefit biological cybernetics, artificial intelligence, and robotics applications.